Uniform and Exponential Asymptotics with Applications to Orthogonal Polynomials

DMS-9970489

In this proposal a number of projects will be undertaken. As one
of the main areas of research, uniform asymptotic theories involving a
coalescing turning point and pole, developed earlier by Dunster, will be
used in the study of non-classical orthogonal polynomials (with an emphasis
on the Meixner, Pollaczek and Charlier polynomials). These earlier
asymptotic theories will also be used in the study of certain singularly
perturbed boundary value problems arising from population biology. Also in
this proposal Dunster intends to sum certain classical uniform asymptotic
Airy function expansions (involving a large parameter and a turning point)
into convergent representations. The new results would then have an
immediate application to Bessel functions of large order and Legendre
functions of large degree. A central and unifying component of the proposed
problems is the development of explicit and realistic error bounds.

More generally, this proposal is based on the approximation of the
so-called special functions. Special functions are solutions of certain
equations which appear in many areas of physics, engineering and
mathematics. This is a very classical branch of mathematics that has
already contributed much to our understanding of the physical world.
Numerical and theoretical results concerning special functions are still of
great importance in virtually all of the physical sciences. Morever, during
the past decade there have been a series of new and exciting ideas leading
to significant improvements in the accuracy of asymptotic methods, such as
the so-called "exponential asymptotics" pioneered by the mathematical
physicist Michael Berry. In this project Dunster intends to use and extend
these ideas in a number of directions. One aspect of the proposal is to
obtain approximations which are valid for a wider range of variables than
obtained previously. An immediate advantage of these more powerful
approximations is that there is greater flexibility in their use in
numerical applications, as well as having important theoretical
implications.